A Symposium for Memristor and Memristive Systems

e propose to hold a symposium on memristor and memristive systems in fall 2008 by inviting experts to discuss scientific principles, experimental findings, and potential exploration of related topics. The importance of this field initially pioneered by Leon O. Chua in 1971 and by Leon Chua and Sung-Mo Kang in 1976 was reaffirmed recently by unveiling of a two-terminal nanoscale device presented in Nature by Stanley Williams and his collaborators at HP Labs.
Potential development of more compact low power memory chips and realization of neuromorphic computing hardware among other possibilities has been suggested by the most recent experimental results. This workshop will potentially help accelerate significant progresses in this newly emerging field.